REU: Long-Path FTIR Analysis of Ecosystem Processes Over Varying Landscape and Spatial Scales

Long-path Fourier Transform InfraRed spectroscopy (FTIR) is a very valuable technique for quantifying trace gas concentrations in the near-surface atmosphere. Drs. Gosz, Dahm, and Risser performed path-averaged analyses for CO2, H20, CH4, CO, and N2O over optical path-lengths ranging as far as 1 km and at temporal frequencies as small as 1.5 second intervals. Their research to date has extensively tested the FTIR instrument under field conditions and experimented with various combinations of instrument setups to maximize detection sensitivity for different path-lengths and gases. The instrument is capable of making repeated high resolution analyses of key trace gases in the atmosphere which are strongly influenced by terrestrial and aquatic nutrient and energy cycling processes. This continuation proposal emphasizes how Drs. Gosz, Dahm, and Risser will interface new developments in the field of micrometeorology with long-path FTIR to move ecology to a new level of technological sophistication that permits the examination of key processes and rates of gas fluxes at realistic spatial and temporal scales in the field. The major objectives of this proposal are: 1. Test Scale Theory Relating to Ecosystem Processes. 2. Develop Path-Averaged Meteorological Flux Measurements to Quantify Long-Path Fluxes. 3. Measure Ecosystem Function with Path-Averaged Gaseous Fluxes. This research effort involves interdisciplinary inter- actions with theoretical and experimental micrometeorologists (U.S. Army, NOAA, NCAR), and theoretical and experimental ecosystem scientists. The range of scales that can be studied with the concurrent use of the FTIR and new micrometeorological instrumentation bridges the gap between traditional ecological techniques and emerging macroscale air-craft and satellite- based technologies. A major goal of this proposal is to further develop links between ecological and meteorological measurements at appropriate scales for use in addressing issues of regional and global environmental change. Drs. Gosz, Dahm, and Risser are productive and innovative scientists. Their research program has introduced important new technology to ecosystem research. The institutional support for this research is excellent.